Collaborative Research: IIBR Multidisciplinary: mSAIL (Michigan Small Animal Integrated Logger): a milligram-scale, multi-modal sensor and analytics monitoring platform

An award is made to the University of Michigan and the University of Pittsburgh to develop and demonstrate a new logger and analytics platform for small terrestrial animal monitoring called mSAIL (Michigan Small Animal Integrated Logger). mSAIL is a millimeter-scale miniaturized tag attached to animals to record, store, and relay environmental, physiological, and behavioral data. This information is critical not only for a richer mechanistic understanding of animal and ecosystem function, but also in order to predict how these systems will change as Earth’s climate changes. This research and resulting technology will have a significant broad impact such as engaging the public and raising scientific literacy because the machine learning algorithms for mSAIL will be trained using real-world data collected by community volunteers. As well, this work will provide substantial mentoring and training opportunities for diverse participants in a cross-disciplinary environment.

This research program tackles technical challenges for developing and applying millimeter-scale data loggers with improved information processing and visualization. The program aims to build a 50 mg millimeter-scale mSAIL device that 1) simultaneously measures light intensity, temperature, air pressure, and acceleration, 2) stores the recorded data in non-volatile memory, and 3) wirelessly communicates collected data. An integrated, chip-size battery will support device operation for one month and an energy-harvesting photovoltaic cell will provide essentially perpetual operation with as little as 500 lux light level. Using mSAIL, increasingly complex datasets that simultaneously document animal behavior and environment will be acquired from an expanded repertoire of species, down to those of sub-gram weight. mSAIL will spur cross-disciplinary collaborations to address a range of problems including the impact of anthropogenic environmental change (e.g. light pollution) on wildlife and the long-range migration of small animals such as monarch butterflies. This award is co-funded with support from the Animal Behavior Program in the Division of Integrative Organismal Systems.